The Analysis and Parameterization of Cloud and Radiation Field in National Meteorological Center Operational Models

To obtain useful predictions beyond a few days requires that both cloudiness and radiation processes be accurately represented in a numerical weather prediction model. Since it is not possible to represent all physical processes on all scales explicitly, it is necessary to use physically based sub-grid scale parameterizations. The goal of this project is to evaluate the current cloud generation and radiation schemes used in the National Meteorological Center (NMC)'s operational global model and to evaluate the sensitivity of forecasts to those schemes. Based on the analyses, the PI will suggest improvements to the schemes. The results of this study should be relevant for climate as well as weather models. This project is part of a joint program in numerical weather prediction sponsored by NSF and NOAA's NMC. The principal investigator and his colleagues will work closely with NMC staff during the research.